Uniformization of Projective Manifolds and Global Properties of Embeddable CR-manifolds

Abstract

Award: DMS-0306487
Principal Investigator: Bruno De Oliveira

The principal investigator will investigate the geometric and
analytic properties of complex manifolds and their real
submanifolds. The first topic of the investigator's research is
the uniformization problem for Kahler manifolds. More precisely,
the study is of the geometric properties of the algebra of
holomorphic functions on the universal cover of a Kahler
manifold. There is a conjecture of Shafarevich formulated in the
early 1970's stating that the universal cover of a compact Kahler
manifold is holomorphic convex. This conjecture proposes that the
function theory of noncompact universal covers of compact Kahler
manifolds is very rich. The difficulty in proving the conjecture
is that there is a lack of methods to produce holomorphic
functions on universal covers. The investigator has developed a
methodology to produce holomorphic functions on universal
covers. Holomorphic functions are shown to arise from the
identification on the universal cover of the pullback of distinct
vector bundles on the Kaehler manifold. This methodology will be
expanded, and in conjuction with the work of Kollar, will obtain
variations of the Shafarevich conjecture. The second topic of
this project is about the interaction between the properties of
special real submanifolds and the properties of the complex
manifolds that contain them. More precisely, how does the
presence of a given CR-submanifold in a compact complex manifold
influences the global analytic and geometric invariants of the
latter? A flexible construction of projective varieties with
given prescribed singularities shows that even though
CR-submanifolds impose restrictions in analytical properties of
the ambient complex manifold like the Kodaira dimension, they are
expected to be less restrictive on topological properties like
the fundamental group.

Complex manifolds are natural objects in mathematics and in
particular in the field of complex geometry. They appear in the
mathematical models of engineering and physics. The research
program proposed will contribute to a better understanding of the
properties of complex manifolds and the theory of their
functions. Advances in complex geometry will have a significant
impact on the development of the models of physics, such as
string theory, describing the forces that shape our
universe. This project will also allow the principal investigator
to organize seminars that will bring experts of the field from
other parts of the country to his institution. This will help
foster the research in complex geometry in the area and it will
be essential to the education of the graduate students at his
institution. The principal investigator hopes to foster an
environment of scientific curiosity and investigation that will
have a wide range of applications.